Orthogonal Polynomials and Special Functions

The proposed research deals with discriminants of orthogonal polynomials
and energy minimization problems where the equilibrium energy involves
a discriminant. We will study q-deformed and quantized analogues of
discriminants which are defined as resultants. This involves developing
a theory of second order q-difference equations for polynomials
orthogonal with respect to a positive measures whose masses are
concentrated on the union of at most two geometric progressions.
We will also consider certain indeterminate moment problems whose
solution involves elliptic functions and their generating functions
satisfy a Lame type differential equation. The Lame differential equations
are also generating functions for a family of biorthogoal rational
functions which are related to R-type continued fractions, a class of
continued fractions Masson and I introduced and recently arose in
solving generalized eigenvalue problems. We also intend to study spectral
theory of second order operator equations involving the Askey-Wilson
divided difference operator.

We plan to study the equilibrium position of a system of particles
in an external field and find explicit formulas for the energy at
equilibrium. We also intend to determine how large the energy gets
when the number of particles gets large. This will be done in
different one dimensional models. Mathematically this leads to
a theory of the so called deformed infinite dimensional Lie algebras (named after Sophus Lie). Another focus will be moment problems where the
observations (moments) do not necessarily determine the
distribution (the physical law) but nevertheless one can find ``best"
distributions. We are also concerned with spectral theory of
the operators called the Askey-Wilson operators. What we are trying to
achieve is to describe their spectrum, which means describe the
possible states of the physical system obeying these equations.